Mathematical Sciences: Topics in Hydrodynamics and Magnetohydrodynamics

The investigator, in collaboration with Dr. M. M. Vishik of University of Chicago, will continue to investigate topics in fluid dynamics. She uses inverse scattering techniques to obtain solutions to the Euler equations that govern the flow of an incompressible, inviscid fluid. This work follows from a Lax pair formulation for the Euler equations derived by the investigator and Vishik. She also proposes to apply dynamo theory techniques to extend the applicability of the instability criteria that she and Vishik have recently obtained for the linearized fluid equations. The investigator will continue her examination, via the use of Hamiltonian techniques, of the stability/instability of three dimensional axisymmetric magnetohydrodynamic equilibria. The primary subject of this research concerns criteria for the existence of instabilities (i.e., when a small change in a steady configuration becomes larger and larger with time.) Fluid instabilities are crucial factors in determining the behavior of many important physical systems. For example, the so called baroclinic instability governs the large scale circulation of the atmosphere; convective instabilities play an important role in air-sea interaction with implications for possible global warming; magnetohydrodynamic instabilities underlie the phenomenon of plasma fusion; the existence of terrestrial and solar magnetic fields is dependent on dynamo instabilities. The investigator's mathematical analysis of the equations of fluid motion has led to specific criteria governing the existence of certain types of instabilities and her proposed research will continue to advance our understanding of the behavior of geophysical and astrophysical fluids.